Industry-University Co-operative Research Program: Acquisition and Use of Semantic Information for Natural Language Processing

This project emphasizes the acquisition and use of semantic information, focusing on robust parsing of natural language inputs (in limited domains). Further, this research addresses the problems of portability, reliability, and habitability. It outlines the development of a set of interactive tools which provide, to both the linguist and the end-user, an accurate set of domain-specific co-occurrence patterns (subject-verb-object and host-modifier combinations allowed in the domain). This set of tools will partly automate the creation of the Domain Information Schema (DIS), namely, the domain-specific information required for processing a given domain. The same set of tools, provided with a different interface for the end-user, will be used to support interactive text entry. The tools will provide detailed feedback on where the system fails to process the text, due to missing or incompatible semantic co-occurrence patterns.